Kids' Survey Network: Developing and Studying an Apprenticeship Network for Informal Math and Science Learning

This project will create and study Kids' Survey Network as an exemplar of a new, replicable model of informal learning called an apprenticeship network. The project will develop the data literacy of future learners, workers, and citizens by empowering participants aged 11-14 to develop survey projects to address their own questions about local community issues. Research on the project will illuminate core questions relating to the design and potential impact of the apprenticeship network, including social and motivational dynamics, community and technology-based scaffolding, educational game genres, and conditions of effective use. The project deliverables include four components: (1) a web-based community of practice; (2) a common set of tools; (3) a suite of learning games and tutorials; and (4) structures for tiered, team-based advancement. Tertl Studios LLC and MIT's Education Arcade will develop the learning games, SRI International will conduct the evaluation, leading regional and national informal education organizations will provide test bed sites, and professional survey research organizations will provide technical and volunteer assistance